Use of Scientific Evidence in the Courts

In February, 1989, Sears, Roebuck and Company was found innocent of the charge of sex discrimination in a lawsuit brought by the Equal Employment Opportunity Commission (EEOC). The two major expert witnesses, both respected historians of women, testified for the case. Since one testified for Sears and the other for the EEOC, their testimonies evoked very different visions of women's motivations and women's roles in the work force. In so doing, they contributed to the way the attorneys defined the significant issues of the case as well as the way the scholarly and legal communities interpreted the meaning of the trial. The purpose of this project is to study in depth the Sears case in order to examine how historical and scientific evidence is used by the Court and to explore the conflicts between scholarly and legal forms of reasoning. The Sears case itself took EEOC twelve years to prepare and cost 2.5 million dollars. The trial took ten months in court and resulted in a transcript of 20,000 pages. In addition to the case analysis, the legal, institutional, and theoretical issues that emerged from it will be explored. The analysis will include an assessment of the competing discourses of social science, statistics, the rhetoric of the court, and the scholar or expert witness. The trial record will be used to illuminate how those involved dealt with contemporary events, how they used knowledge and historical evidence, and how they understood the corporate culture and the relationship of the law and the academy to it. The official record will be supplemented with interviews of the participants. The examination of the modes of legal discourse in the Sears case brings a needed rigor to the study of theories of discrimination. The project will contribute to our understanding of the factors which influence legal decisionmaking in affirmative action cases and will expand knowledge of the legal theory of equality. In addition, the project promises to make a major contribution to understanding of the role of expert witnesses and social science evidence in the courtroom. Finally, the research has important implications for shedding light on the relationship of law and the academy to corporate culture.